The Washington Center Calculus Dissemination Project

Faculty from a consortium of diverse institutions are adapting, refining, and implementing approaches to teaching calculus that were developed at Duke University and by the Core Calculus Consortium, headed by Harvard University. The first year involves training a select group of about twenty faculty in the new methods. This core of faculty trains faculty from twelve additional institutions in the second year and all those involved adapt and implement one of the new approaches at their home institution.